Partial Support of the Seventh International Congress of Arctic Social Sciences (ICASS VII)

This project will provide support to primarily Arctic indigenous scholars and students to
participate in the Seventh International Congress of Arctic Social Sciences (ICASS VII) to be held June 22-27, 2011 at the Stefansson Institute in Akureyri, Iceland. The ICASS is a major international conference, administered by the International Arctic Social Scientists Association (IASSA) and meeting every three years to bring together international arctic social scientists, scientists from other fields, indigenous scholars and community members, and students for 5 days. The meeting provides a venue where these groups can discuss their research findings, update on the progress of IPY research in the social and human disciplines, and create new opportunities for collaborations between scientific disciplines and with northern communities for future research. The main theme of the VII Congress is "Circumpolar Perspectives in Global Dialogue: Social Sciences beyond the International Polar Year" and will build on the success of the ICASS VI held in 2008 in Nuuk, Greeland, which featured 300 participants from 17 countries involved in IPY-funded social science research.